Formation of Cell-Cell Channels

Cells in most tissues are interconnected by cell-cell channels which allow the passage of electrolytes and small molecules from cell to cell. Aggregates of these channels are contained in the clustered intramembranous particles of gap junctions. The objective of this research project is to understand the process of formation of cell-cell channels. This problem is addressed by making use of the expression of functional cell-cell channels in paired oocytes from cloned gap junction cDNA. Oocytes accumulate a pool of precursors that increases with time after gap junction specific mRNA injection. Cell-cell channels form rapidly from this pool when oocytes are paired. This cell-cell channel assay will allow to identify determinants of channel formation at the macroscopic level. In combination with site directed mutagenesis and synthetic peptides it should yield information about molecular domains involved in the formation process. Information gathered from the proposed experiments may facilitate development of specific blockers of gap junction formation. Such blockers do presently not exist, they are however desirable for studies of the biological role of gap junctions.